Spectroscopy of Pre-main Sequence Stars

AST-0204021

PI Herbig

The project has two goals: (1) To investigate at high resolution the spectra of the so-called Herbig Ae/Be stars, believed to be intermediate-mass analogs of the young stellar objects known as T Tauri stars, by concentrating on those of known age and luminosity because the are members of five well-investigated young star clusters; and (2) to extend the spectroscopy of several FU Orionis-like eruptive variable stars in order to clarify a number of possibly critical conflicts with the standard interpretation of the so-called Fuor phenomenon in this class of star. The FU Orionis stars are pre-main sequence stars that have brightened significantly sometimes on short time scales and are not well understood.